Travel Grant Proposal: Travel support for young researchers to attend the HEPEX09 downscaling workshop

The international Hydrologic Ensemble Prediction Experiment (HEPEX) is organizing a workshop in June 2009 to advance downscaling approaches for weather and seasonal climate modeling that would generate ensembles useful for hydrological forecasting. This is the fourth workshop held by the HEPEX project.